Cold Spring Harbor Laboratory ADVANCED BACTERIAL GENETICS COURSE

The Cold Spring Harbor Laboratory proposes to continue its highly successful summer course in Advanced Bacterial Genetics. This course has its roots in the original Bacteriophage Course initiated by Dr. Max Delbruck in 1945. This three week course prepares the participant to enter directly into research that makes use of advanced techniques and concepts in molecular genetics and microbial bioinformatics. Experiments providing a solid grounding in classical genetic analysis support training in contemporary uses of transposon mutagenesis, gene fusion technology, chromosomal mapping, deletion mapping and complementation analysis, second-site suppressor analysis and whole genome analysis. Experiments also introduce the student to new molecular techniques of gene cloning, new advances in site-directed mutagenesis, DNA microarray analysis and polymerase chain reaction as applied to diverse problems in bacterial and bacteriophage genetics, "mapping" genes by sequencing from transposon insertion ends and genome sequence searching, and the use of transcriptional, translational and cellular localization reporters along with indicator media and deconvolution microscopy to identify mutants. This course, which is unique in providing instruction in both genetics and molecular biology, gives participants the wherewithal required to perform analogous experiments in their home laboratories.